Japan STA Program: Multi-Component Effects in Coalbed Methane Modeling

Whitney This award will provide supplementary support to enable Dr. Earl Whitney of the University of Utah to conduct collaborative research with Dr. Ikuo Saito for 12 months at the National Institute for Resources and Environment in Tsukuba, Japan. Whitney and Saito will utilize Whitney's expertise in the chemistry and structure of coal to develop models for the flow and production of coalbed methane. Coalbed methane is a largely wasted fuel resource which recently has become a significant contributor to the U.S. domestic natural gas supply. In order to develop accurate simulations and assessments of this resource, basic research is needed on the multicomponent desorption, diffusion, and flow effects which largely determine the composition and production of coalbed methane. The experimental opportunities as well as pre-existing data on coalbed and gas properties of methane at Dr. Saito's laboratory will complement Dr. Whitney's experience in modelling the physical processes of coal. Because of its policy to increase energy efficiency and improve the utilization of wasted energy, the Japanese government is encouraging the research of Dr. Saito so as to develop a strong capability in fuel resources assessment.